First World Congress of Biomechanics; August 26-31, 1990; La Jolla, CA

This proposal will provide partial funding for the "1st World Congress of Biomechanics". This new international conference will provide a useful and coordinated mechanism for the dissemination of knowledge in this new and growing field of engineering. Topics to be covered will include both current research and projections for future needs and trends in biomechanics research. It is the intent of the organizers of this meeting to consolidate the various small national and international meetings into a single large one, so that an interdisciplinary synergism can enrich the field of biomechanics.